Botanical Society of America Symposium, Modern Methods in Botanical Microscopy; Davis, CA; August, 1988.

A symposium on modern methods in Botanical Microscopy will be conducted during the AIBS Botanical Society annual meetings at Davis, California. The Symposium will be of immense value to young investigators contemplating careers in cellular biosciences.